Laser Probes of Hazardous Waste Incineration Chemistry: Chlorinated Hydrocarbons

Two key issues hindering the incineration of chlorine containing hydrocarbons are addressed: the difficulty of detecting trace chlorine species in exhaust streams, and the lack of quantitative combustion kinetics for chlorinated hydrocarbons. A nonintrusive probe with fractional part per billion sensitivity will be studied by first producing fluorescence measurements. Various uv excitation and monitoring wavelengths will be explored to optimize the sensivity. The second issue will be addressed by assembling a kinetics mechanism for chlorinated hydrocarbon combustion and testing it in a methane/methyl chloride/oxygen flame at 100 torr. The problems being attacked are of critical importance to waste incineration technology. The research will lead to a more fundamental understanding of the mechanisms responsible for the fate of chlorinated species during combustion, and will hasten the development of a Cl/HCl monitor for industrial source applications.